Biodiversity: The Interface Between Systematics and Conservation Workshop in Bloomington, IN (June 23-27, 2000)

ABSTRACT

PI: Funk
DEB-0073209
Institution: Smithsonian Institution

This project supports a symposium to be held on 23 - 27 June, 2000, in Bloomington, Indiana, titled "Biodiversity: the Interface between Systematics and Conservation." The workshop-symposium will be held in conjunction with the joint meetings of the Society of Systematic Biologists, Society for the Study of Evolution, the American Soceity of Naturalists, and the Association for Tropical Biology. The symposium is designed to bring together for the first time researchers from a wide variety of fields related biodiversity and conservation to discuss the relevance of systematics to their research and to evaluate various techniquest that make use of systematic and taxonomic data. The topic is timely because of the increasing recognition of the importance of systematic data in conservation biology, and the wealth of new methods available. The participants will explore various aspects of biodiversity studies in light of how systematics and conservation can work together to explore biodiversity issues. The symposium will also highlight recent developments in computer software that utilize systematic data for assesment of geographically based conservation activities.